Geometry of Measures

Abstract:

The area of analysis called geometric measure theory (GMT) was formally
introduced in the nineteen sixties, when the book ``Geometric Measure
Theory'' by H. Federer was published. Since the beginning of the century a
large amount of relevant work had been done in this area by many authors
including Besicovitch, Carath\'eodory, De Giorgi, Federer himself,
Fleming, Marstrand, Morrey, Reifenberg, and Whitney. However it was only
when Federer's book was published that it became clear how all these
results fit naturally together as a cohesive subject. Unfortunately since
its introduction the subject has been perceived as somewhat mysterious and
inaccessible. In this proposal the investigator exploits one of the
outstanding features of the field, its versatility. The PI intends to
apply techniques of GMT to study free boundary regularity problems, to
answer questions regarding the existence of good parameterizations for
certain metric spaces and to classify sets supporting ``Lebesgue-type''
measures.

Free boundary problems arise naturally in physics and engineering. The
free boundary may appear as the interface between a fluid and the air, or
water and ice. In the filtration problem, which studies how water
filtrates from a dam made of a porous medium (say earth), the free
boundary separates the wet part from the dry part. The problem of
characterizing the regularity of the free boundary has been studied by
many authors, among others Alt, Caffarelli and Friedman. In this proposal
the investigator addresses this question under very weak free boundary
assumptions. By relaxing the regularity hypothesis a broader spectrum of
physical problems can be covered. The investigator also proposes to study
the structure of sets supporting measures that behave like Lesbegue
measure on an affine space. In the context of weak notions of regularity,
these sets play the role of tangent planes. In particular the problem of
classifying these sets is of primary importance. The ideas discussed here
belong to a larger project that intends to establish that weak notions of
regularity are for many purposes sufficient to answer basic questions in
analysis and geometry.